ITR: Collaborative Research: Solving PDEs Using Low Separation-Rank Representations and Optimal Quadratures for Expontials

This project develops time-domain solvers for wave propagation problems
in two and three dimensions, with fundamentally improved properties,
namely, significantly reduced sampling requirements and, at the same time,
significantly higher accuracy. Such solvers would allow modeling of linear and, eventually, nonlinear
wave propagation in domains that are thousands of characteristic wavelengths
in size, with interfaces and variable coefficients.
This approach would also provide improved bases for solving
nonlinear advection-diffusion problems. The solvers are built upon two
new techniques, namely, optimal quadratures to represent bandlimited functions, and a numerical generalization of separation of variables to accelerate applying higher-dimensional operators. Each
technique contains the potential to significantly advance computational
science across a wide range of applications. Together they provide a
new paradigm that efficiently organizes the information contained in
operators governing physical phenomena. This project develops these techniques
further, and develops multiresolution representations for operators and
functions, based on the optimal quadratures.

Any computational modeling of natural phenomena requires discretization
of the underlying mathematical equations. This project addresses questions of
optimality and efficiency of such discretizations, and of organization
o information for two important modeling areas, wave propagation and
geophysical fluid dynamics. This research aims to generate a much wider use of
efficient techniques for representing information in scientific modeling, and to
increase the speed and accuracy of simulations by up to two orders of magnitude,
with foreseeable benefits to such areas as seismology, remote sensing,
acoustics, optics, geophysical fluid dynamics, and quantum chemistry. It would
reduce the computational cost of obtaining high accuracy, which is necessary to
describe phenomena that are highly sensitive to changes in physical
parameters, and that often cause technological bottlenecks.
This Collaborative Research is led by the Department of Applied
Mathematics at the University of Colorado at Boulder, and includes the Department of
Meteorology at the University of Maryland at College Park. It will fund
one research associate, two visiting scientists from UMD and Ohio
University, and one graduate student in a diverse research group that includes a
research associate, two postdoctoral researchers, a graduate student, and four
undergraduate students.